Perceptual Categorization in Real-World Expertise

People with perceptual expertise are skilled at making rapid identifications of specialized objects at a glance, often in poor light and camouflage. Forensic experts can accurately match exemplars to latent fingerprints that may be small, distorted, or smudged. Expert radiologists can quickly categorize medical images as normal or cancerous. This project examines perception, categorization, and identification along the continuum from novice to expert performance in two real-world perceptual domains. The overall aim is to understand how fundamental perceptual and cognitive mechanisms are tuned and modified by experience and expertise. The models arising from this project will enable us to understand the development of real-world perceptual expertise and to validate theoretically-grounded measures of expert performance.

Why study perceptual expertise? Just as gifted athletes push the limits of their bodies, or prize-winning mathematicians push the limits of their minds, perceptual experts push the limits of their perceptual systems. Perhaps with better markers of perceptual expertise and a better understanding of how people become perceptual experts, we could identify potential perceptual experts more effectively, train new perceptual experts more efficiently, and evaluate existing perceptual experts more thoroughly. Studying perceptual expertise can also help inform our understanding of the kinds of everyday expertise that we all have, such as recognizing faces or reading words. This can yield new insights into education and workforce training along with new insights into how the ravages of brain damage or disease might lead to perceptual and learning deficits and potentially inform future breakthroughs in evaluation, intervention, or treatment.